RUI: Theoretical Studies of Organic Reaction Mechanisms

This grant from the Organic Dynamics Program supports the work of Professor Scott Gronert at San Francisco State University. Ab initio theoretical methods will be used to characterize the transition states of several fundamental organic reactions. Gaussian 90 will be used to examine the mechanisms and energetics of proton transfer, E2, and SN2 reactions. Bader electron density analysis will be used to examine how the molecular electron density responds during chemical transformations and how it shifts to stabilize transition states. %%% Theoretical calculations will be undertaken in order to determine the changes in energy during an organic reaction and to determine the three dimensional structure of any intermediates formed on the way to product. The calculations will be performed on small molecules in order to limit the number of assumptions that must be made. These reactions, however, can serve as models for more complicated systems and the theoretical results will give new insights into the factors that affect these important reactions. These calculations refer to the gas phase and will either confirm or question conclusions obtained from gas phase experimental studies.